Mathematical Sciences: Local Index Invariants for Rings of Type I & II

Professor Carey will continue his work in operator theory concerning principal currents, local index, and Fredholm reciprocity in multivariable spectral theory. For operator rings of type II, this work involves relationships between determinant theory in operator algebras and plurisubharmonic functions. This project concerns Hilbert space operators which can be thought of as infinite matrices of complex numbers. Professor Carey's project will focus on a more geometric way of looking at these operators. The ultimate goal is to be able to classify and obtain a deeper understanding of large families of these objects, for they are important in almost all branches of pure and applied mathematics.